GONG '94 Conference: Helio-and Astero-Seismology from Earth and Space. May 16 to 20, 1994, Davidson Conference Center, University of Southern California

9407747 Ulrich The 1994 GONG Conference will be held at the University of Southern California from May 16 to May 20, 1994. Areas in which helioseismology is making or is expected to make fundamental contributions to our knowledge of the Sun will be discussed. These include the rotation of the interior of the Sun, the solar activity cycle and the generation of neutrinos within the core of the sun. ***